Collaborative Research: Hot Jupiter Detection Experiment with the Long Wavelength Array

This is part of a collaborative project to search for low-frequency narrowly beamed, highly circular polarized radio emission from "hot Jupiter" extrasolar planets, as part of the HJUDE project. This emission is predicted to be bright enough to be detected by the newly commissioned LWA1 (Long Wavelength Array) radio telescope, and thus the detections (or upper limits) will be used to test planetary magnetospheric physics models. As part of the project, the PIs will train undergraduate and graduate students and a postdoctoral researcher in instrumentation, computational expertise and data reduction and analysis techniques. They will also make the software spectrometer available to other scientists in the community.